Research Experiences for Undergraduates (Physics)

The University of Pennsylvania will increase undergraduate research involvement for ten students from the University of Pennsylvania and post-secondary institutions in the Philadelphia area. Research areas will include astrophysics, condensed matter physics, elementary particle physics and nuclear physics. A pre-summer student involvement will be conducted to maximize summer productivity and to the maximum feasible extent will continue into the following academic year, culminating in the form of a written document prepared and defended by the student. This project is supported under the Program of Research Experiences for Undergraduates to help ensure an adequate supply of scientists for the future.